Issues in Classical and Quantum Gravity

This research will advance our understanding of quantum gravity, a deep understanding of which has been a goal of theoretical physics for more than 50 years and has attracted the attention of such well-known physicists as Dirac, Penrose, and Hawking. The term "quantum gravity" refers to any structure that would bring together the lessons of quantum mechanics (developed by Bohr, Heisenberg, and others and which is essential to describe the physics of atoms, molecules, and smaller objects) and general relativity (developed by Einstein, and describing gravity in terms of curved spacetime). Specifically, this research addresses quantum aspects of black holes and the microscopic structure of spacetime.

One expects a deep understanding of quantum gravity to be critical for deciphering the behavior of matter and energy in the deep interior of black holes and in the very early universe. It is widely agreed that, if there are to be further major revisions in our conception of the universe comparable to those associated with Einstein's development of relativity 100 years ago, this is the field from which they will emerge. As a result, such research in principle has the potential to completely revolutionize science, technology, and our entire civilization. In the shorter term, it captivates the interest of both science students and the lay public and encourages the growth of a scientifically literate and technologically knowledgeable public and workforce.